U.S.-Hungary Research on Stability and Price Dynamics in Economic Network Systems

WPC$! 2 B V V Z Z #| F le) 8 w C ; , WX w P 7 X P " m ' ı ^;C dd CCCd CCCCddddddddddCC Y ~ ~w CN ~ s k~ CCCddCYdYdYCdd88d8 ddddJN8dd ddYYdY C dd dddCCCC dddddd ddd8 Y Y Y Y Y Y~Y~Y~Y~YC8C8C8C8 d d d d d d d d d d Y d d d d dsd Y Y Y Y Y Y Y d~Y~Y~Y~Y d d d d d d d dC8C8C8C8 oN d~8~8~8~8~8 d v d d d d J J JkNkNkNkN~8~8~8 d d d d d d d Y Y Y d~8 d JkN~8 d d d d d C dd C CC/ N d ddCYQQdd ddd dFdddd F CC hhd 44 ddzz d d d w oo dCh d F" d h dÕ dCC z xC d dod dCd Yds z Uw d Y Y C C C C z~o zo Y~N Y d YC8 Y o o Y d Y zsdzd d~Y Y z o zzzzNd88YYYzYz z zz CCddddd dd zzzzzzzzzzzzzzzzzzzNNNNNNNdddddddddddddddddddd888888888888YYYYYYYYYYYYYYYYYYYzzzzzzzzzzzzzzzzzzzzC s ~ C zC d dYC xHP LaserJet III HP_LJ_3.PRS X w P 7 , \ , X P 2 Z #| F " m ' ı ^;C dd CCCd CCCCddddddddddCC Y ~ ~w CN ~ s k~ CCCddCYdYdYCdd88d8 ddddJN8dd ddYYdY C dd dddCCCC dddddd ddd8 Y Y Y Y Y Y~Y~Y~Y~YC8C8C8C8 d d d d d d d d d d Y d d d d dsd Y Y Y Y Y Y Y d~Y~Y~Y~Y d d d d d d d dC8C8C8C8 oN d~8~8~8~8~8 d v d d d d J J JkNkNkNkN~8~8~8 d d d d d d d Y Y Y d~8 d JkN~8 d d d d d C dd C CC/ N d ddCYQQdd ddd dFdddd F CC hhd 44 ddzz d d d w oo dCh d F" d h dÕ dCC z xC d dod dCd Yds z Uw d Y Y C C C C z~o zo Y~N Y d YC8 Y o o Y d Y zsdzd d~Y Y z o zzzzNd88YYYzYz z zz CCddddd dd zzzzzzzzzzzzzzzzzzzNNNNNNNdddddddddddddddddddd888888888888YYYYYYYYYYYYYYYYYYYzzzzzzzzzzzzzzzzzzzzC s ~ C zC d dYC xHP LaserJet III HP_LJ_3.PRS X w P 7 , \ , X P 2 : h D Z CG Times (Scalable) CG Times Italic (Scalable) CG Times Bold (Scalable) CG Times Bold Italic (Scalable) 8 w C ; , WX w P 7 X P 6 6 u C ; , 2 X u & _ x $&7 X X 7 z C ; , / `X z _ p ^ 7 X t 4 x C ; , H X x * 0 x M7 X V " G ( $ , h G P 7 h P " m ' ı ^;C`dd CCCd CCCCddddddddddCC d zz zs CY o z zdo z zooCCCddCddYdY8dd88Y8 ddddNN8dY YYNYdY C dd dddCCCC dddddd ddd8 zdzdzdzdzd YzYzYzYzYC8C8C8C8 d d d d d d d d doYzd d d doY dzdzdzdzd Y Y Y Y dzYzYzYzY d d d d d d d dC8C8C8C8 dY Yo8o8o8o8o8 d z d d d d zNzNzNdNdNdNdNo8o8o8 d d d d d d oYoNoNoN do8 dzNdNo8oYoY d d d C dd C CC/ N d ddCd dd ddd dFdddd F CC ddd 88 ddzz d d d k dd dCd d F" d d dÕ dCC z xC dzdod dCd Yds z Uw d Y Y C C C C zzzo zo YzNoY d YC8 Y o o Y d Y zzdzd doYoY zzo zzzzNd88YYYzYz z zz CCddddd dd zzzzzzzzzzzzzzzzzzzNNNNNNNdddddddddddddddddddd888888888888YYYYYYYYYYYYYYYYYYYzzzzzzzzzzzzzzzzzzzzC s zz C ozCod dYC x 2 B R " m ' ı ^;C dd CCCd CCCCddddddddddCC d z N` z o CCCddCdoYoYFdo8Co8 odooYNCod ddYddd C dd dddCCCC dddddd ddo8 d d d d d Y Y Y Y YN8N8N8N8 o d d d d o o o o d d o d d d dzo d d d Y Y Y Y o Y Y Y Y d d d d d d o oN8N8N8N8 r` o 8 8 8 N 8 o o o d d Y Y YoNoNoNoN C C C o o o o o o d Y Y Y o 8 o YoN C d d o d o C dd C CC/ N d ddCdUUdd ddd dFdddd F CC ssd 44 ddzz d d d ~ oo dCs d F" d s dÕ dCC z xC d dod dCd Yds ` z Uw d d d C C C C z o zo Y N Y Y YN8 Y o o Y d Y zzdzd d Y Y z o zzzzNY88YYYzYz z zz CCddddd dd zzzzzzzzzzzzzzzzzzzNNNNNNNYYYYYYYYYYYYYYYYYYYY888888888888YYYYYYYYYYYYYYYYYYYzzzzzzzzzzzzzzzzzzzzC z N zN d dYC x " m ' ı ^;Nhdd CCCd CCCCddd dddddddCC d z Nd z z oz zzCCCddCddYdYFdo88d8 odddNN8oY dYNddd C dd dddCCCC dddddd ddd8 d d d d d Y Y Y Y YN8N8N8N8 o d d d d o o o ozY d d d dzY dzd d d d Y Y Y Y d Y Y Y Y d d d d d d o oN8N8N8N8 kd dz8z8z8zFz8 o o o d d N N NoNoNoNoNz8z8z8 o o o o o o zYzNzNzN dz8 o NoNz8zYzY d d o C dd C CC/ N d ddNdYYdd ddd dCdddd C CC kkd 88 ddzz d d d s ss dCk d C" d ~ dÕ dCC z xC d dod dCd Yds ` z Uw d d d C C C C z o zo Y NzY Y YN8 Y o o Y d Y zzdzd dzYzY z o zzzzNY88YYYzYz z zz CCddddd dd zzzzzzzzzzzzzzzzzzzNNNNNNNYYYYYYYYYYYYYYYYYYYY888888888888YYYYYYYYYYYYYYYYYYYzzzzzzzzzzzzzzzzzzzzC z N zzNzd dYC x " m ' ı ^$(8<<k (((<k((((<<<<<<<<<<((xkx5kWLRYLGWY(/TLmYWEWP@LYWqWWN(((<<(5<5<5(<<!!<! <<<<,/!<<W<<55<5x ( << <<<(((( <<<<<< <<<! W5W5W5W5W5kPR5L5L5L5L5(!(!(!(!Y<W<W<W<W<Y<Y<Y<Y<W<W5Y<W<W<W<Y<E<W5W5W5R5R5R5R5Y<L5L5L5L5W<W<W<W<W<W<Y<Y<(!(!(!(!XC/ T<L!L!L!L!L!Y<YGY<Y<W<W<kWP,P,P,@/@/@/@/L!L!L!Y<Y<Y<Y<Y<Y<qWW<N5N5N5 Y<L!Y<P,@/L!W<W<Y<W<Y< ( << ( ((/xxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxNWWW< <<(511<<i<<<kk<*<<<<k* (( >><k xx<<II x<x<W< GddCCk d(> < q *"xxxxWWxxx<Wxx>WWkkxxx <Õkkxxx k<((xxxxxWIxkWWWWWWWWWWx(x<W<C<kxWxP<(<W5<EW NxxWWWWWWWWWWxxxxx8xWWWWxxxxxxxxxxxxx xxxxxxWWxxxxxxdPI xWx xx 3G WWWW xx x